CRB: Breeding Behavior and Reproductive Seasonality of Biparental Cichlid Fishes

Determining the seasonal patterns of fish reproduction in tropical lakes, and the processes that regulate mating and parental behavior, is fundamental to understanding natural fish communities and to the management and conservation of these diverse groups of animals. Dr. McKaye will observe the changing seasonal behavioral patterns of cichlid fishes in Lake Jiloa, Nicaragua, through direct underwater observations and use of remote video equipment. This study has five main objectives: (1) Long-term continuous monitoring and quantification of territory formation and breeding patterns of these fishes; (2) determining adult fish movements and number of times they breed in a three-year period by means of an intensive tagging program; (3) experimental manipulation of the community by removing the presumed competitive dominant to determine if other species will alter their breeding patterns in its absence; (4) quantifying the behavioral patterns among species and sexes in the defense of young throughout the brooding period; (5) determining the frequency of inter- and intra-species adoptions by cichlid fishes and the behavior patterns causing these adoptions to occur. The data collected, besides being important in answering behavioral questions about reproductive seasonality, will play a major role in conserving one of the world's most evolutionarily interesting groups of fishes.